Oceanographic Instrumentation

A request is made to fund additional and back-up instrumentation on the R/V Roger Revelle, a 273’ general purpose Global vessel; the R/V Melville, a 279?general purpose Global vessel; the R/V New Horizon, a 170’, general purpose, Intermediate vessel and the R/V Sproul, a 125’ general purpose Regional vessel. All four vessels are operated by Scripps Institute of Oceanography as part of the University-National Oceanographic Laboratory System research fleet. The request includes five items listed by priority:

1) Shipboard Network Upgrades
2) MicroK-100 Termperature Bridge
3) TrackLink 5000 USBL
4) Lowered ADCP (2 systems)
5) Pumps for AA-III AutoAnalyser (3)

Broader Impacts:
The principal impact of the present proposal is under criterion two, providing infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.